Presidential Young Investigator Award

The proposed research involves the development of a high spectral resolution optical interferometer for measurement of the dynamics of the Jovian magneto-nebula, the latitudinal distribution of CO on Mars, and the dynamics of Mercurian sodium escape. The instrument is designed for transportability and adaptability to a wide range of emerging solar system targets of opportunity.